Presidential Young Investigator Award: Research in NonlinearHarmonic Analysis.

Professor Semmes is a young researcher who has already established himself as a world leader in broad areas of modern and classical analysis. His important new results run through such subject matter as operator theory, nonlinear Fourier analysis, complex variables, partial differential equations, and geometry. This Presidential Young Investigator award is based upon the substantial evidence that Professor Semmes' career as a research mathematician will have a profound impact on the future of mathematical analysis.